Catalytic Asymmetric Acyl Halide-Aldehyde Cyclocondensations and Claisen Rearrangements

The foci of this research involve two areas. First, generally applicable asymmetric acyl halide-aldehyde cyclocondensation variants involving substituted ketene nucleophiles will be developed. Second, diastereoselective and enantioselective variants of Ir(I)-catalyzed Claisen rearrangements will be probed.

With this award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Scott G. Nelson in the Department of Chemistry at the University of Pittsburgh. Professor Nelson will focus his research efforts on developing methodology for the catalytic asymmetric synthesis of useful synthetic intermediates. The research has broader impact for the pharmaceutical industry where the preparation of enantiomerically pure compounds is crucial. Further, the project will provide an excellent arena for the training of graduate students.